Parallel Computation and Learning

The project is concerned with developing and applying ideas from complexity theory to three distinct but related areas of computation: Under continued investigation are the theoretical possibilities for general purpose parallel computers. The problem is to devise idealised high level models that are both convenient for the programmer as well as efficiently simulated in realistic technologies. As a distinct topic in parallel computation the computational capabilities of brainlike models of computation are being studied. Such neural models appear to become more distinct from other complexity models if biologically plausible restrictions on time and space resources are imposed. Thirdly, partly in support of this latter work, the PI will continue to investigate the limits of what can be learned or induced, as imposed by such criteria as polynomial time computability.